Geometry of Banach Spaces and Operator Spaces

Abstract for DMS-0200690
William B. Johnson and Gilles Pisier, PIs

The principal investigators will investigate problems in the
theories of Banach spaces and operator spaces. The problems
to be considered fall into several subcategories; namely,
affine approximation of Lipschitz functions, non linear
infinite dimensional and finite dimensional geometry, finite
dimensional subspaces of Lebesgue spaces, measures on infinite
dimensional spaces, similarity theory, tensor products of
operator spaces, bounded and completely bounded approximation
properties, and amenability of spaces of operators. There will
be coordination of the proposed project with the existing
Workshop in Linear Analysis and Probability Theory at Texas A&M
University. This Workshop encourages interactions among
researchers and apprentices in different mathematical
fields by bringing together graduate students, young
investigators, and junior and senior postdoctoral participants
in several areas of analysis.

Banach space theory, the study of notions of "distance" which
are not necessarily Euclidean on both finite and infinite
dimensional vector spaces, forms the basis for both Euclidean
and non-Euclidean geometry and the analytic geometry of infinite
dimensional function spaces, including the space of continuous
numerical functions on an interval as well as more complicated
classes of functions. From the beginning, the ideas at the
root of Quantum Mechanics have had a major impact on mathematics,
stimulating the study of operators and their spectrum instead of
numerical functions. These ideas have led recently to the new
field of "Quantized Functional Analysis" or "Operator Space
Theory" and this development has led to the solution of several
major problems as well as opened new avenues of research.
Analogously, the non linear geometry of Banach spaces
also is a rather recent development which is beginning to have
considerable impact in geometrical analysis in both the finite
and infinite dimensional settings.